Scholarships for Engineering Technology

This project is awarding scholarships to eighteen full-time students each year for 4 years. An annual award of $7,200 for up to four years will help support the scholars through degree completion. The scholarships are awarded to students in pursuit of Baccalaureate degree or enrolled in two year Associate degree program that plan to pursue a 4-year degree. Programs affected by this project include: Electrical Engineering, Mechanical Engineering, and Civil Engineering Technologies; Engineering Science and Alternative and Renewable Energy Applications of Engineering Technology. Scholars may minor in Physics or Mathematics.